REU: Research Experience for Undergraduates

This award will establish an REU Site at the University of Wisconsin-Madison in the department of Bacteriology. This intensive eight-week summer research program will provide meaningful research experiences in microbiology and molecular biology to ten undergraduate students. Women, minorities and the disabled, from institutions where research opportunities are limited or non-existent will be especially recruited. The long- term objective of this program is to stimulate promising young scientists to pursue careers in research. The Department of Bacteriology has an internationally recognized research faculty who are committed to both graduate and undergraduate education. Participating students will have the opportunity to work as part of a dynamic research team at the forefront of basic research. They will be exposed to many modern microbiological, biochemical and molecular techniques and will use state-of-the-art research equipment. The Department's proven record of providing laboratory research opportunities for its own undergraduates will insure success of the REU project.